Are dipolar liquids ferrroelectric?

In this Small Grant for Exploratory Research (SGER), funded by the Experimental Physical Chemistry Program of the Chemistry Division, Prof. David P. Shelton of the University of Nevada - Las Vegas his graduate and undergraduate research students will investigate whether dipolar liquids exhibit a ferroelectric phase, using hyper-Rayleigh scattering.

Water is a dipolar liquid of great importance in chemistry, biology and technology. This work will help to reveal whether there is long-range organization or structure in water. This could have a profound effect on our understanding of diverse phenomena including protein folding and function.